SGER: Polycrystalline and Amorphous GaN Sensor Arrays

The objective of the work is to attempt to develop large area sensor arrays based on amorphous and/or polycrystalline GaN deposited at low temperatures on flexible substrates. This technology will find applications in sensitive skins, capable of both tactile sensing and proximity photodetection of surrounding objects. The expectation is that the work will eventually result in prototype patches of skin up to 6 inches in size with sensor arrays with densities on the order of 1000 sensors per cm2. This twelve-month project will focus on the fabrication, characterization, and modeling of GaN-based sensor arrays grown on different substrates. Optical, mechanical, and electrical properties of these films will be analyzed, and test Schottky barrier device arrays will be fabricated to demonstrate pressure and photodetector sensor capability of this new materials system.